SGER NEESR Payload Project to NEESR SG Award CMS-0530759: Leveraging Tsunami Research - Wave Loading on Residential Structures with Earthquake and Hurricane Applications

This Small Grant for Exploratory Research (SGER) Network for Earthquake Engineering Simulation Research (NEESR) payload project will utilize the experimental test set-up of the NSF-funded project (CMMI-0530759) entitled "NEESR SG: Development of Performance Based Tsunami Engineering, PBTE" at the NEES tsunami wave basin at Oregon State University during June - December 2007. The objective of this payload project is to install residential structural models, at a larger-scale than the mid to high-rise structures tested by the SG researchers on the other side of the wave basin, to investigate impact due to wave loading and run-up (applications to tsunami engineering) and pressure/wind driven surge (applications to hurricane engineering and science). The payload project will install two single-family dwelling models beside each other on a flat surface above the waterline representing coastal property or a structure slightly inland. The following new knowledge will be generated by this payload project: (1) information on fluid impact loads as a function of different wave heights and ground slopes on residential structures to enable the development of dimensionless charts for use by practitioners/planners and to facilitate innovative construction techniques in coastal regions; (2) an understanding of the load transfer mechanism and uplift forces on residential structures during wave and surge loading, both of which are not understood currently; and (3) the relationship of scale model pressure to full-scale prototype damage through existing methods, formulations, and minimal assembly testing.

Intellectual merit: Whole woodframe models have never been tested in a tsunami wave basin; thus new information about the response of woodframe structures subjected to tsunami loading will be generated and made available to the earthquake engineering and broader science community. Broader impacts: Experimental results will be made available to researchers, practitioners, designers, and public policy officials via the NEES central data repository operated by NEES Consortium, Inc. (http://www.nees.org) to facilitate innovative products and construction techniques. This project has applicability not only within earthquake engineering but also to multi-hazards (e.g., hurricane science and engineering).